NSF Young Investigator

The applicant's research program is concerned with the mathematical description of convection and diffusion of macromelus in microstructured materials, and the thermodynamics of fluid vapor equilibrium. Applications of the transport research include the development of micro- tailored enzyme carriers and novel separation systems.